Assembling a Continent: Deep Crustal Processes at an Archean Plate Boundary, Snowbird Tectonic Zone, Saskatchewan

9406443 Williams The tectonics of the early earth is controversial and difficult to study. The snowbird tectonic zone is a long boundary between northern Saskatchewan tectonic provinces, that has recently been tecontized in the mid-Archean (3.2 Ga). These rocks contain unusually well perceived high pressure minerals and fabrics presumably due to Archean collisions. This project will study three distinct terranes within the Snowbird zone to unravel how each formed and how they came to be joined by Archean tectonic displacement. Results have considerable significance to the early development of cratons, especially deep crustal processes.